Significance of Marine-Urban Aerosol Interactions for Atmospheric Physics

The objective of this research is the evaluation and interpretation of marine and urban aerosol measurements, particularly the initiation and evolution of haze droplets and the cognate effects of deposition, the condensation - evaporation cycle, and the potential role of these droplets in radiative transfer.//